Engineering Research Equipment: Microencapsulation Device

9411812 Srienc This equipment is to be used for several research projects, including: (1) quantitation of protein secretion in single Saccharomyces cerevisiae cells; and (2) quantitation of protein in single mammalian cells such as hybridomas. This equipment will provide a unique way for experimental verification of data suggested from population models. It will also provide a means of isolating cells with increased ability to secrete different metabolites. ***